Curriculum Development Project: Calculus

Materials are being developed that complement the calculus courses at major universities throughout the nation. Integrated supplements are being developed that feature labs, projects, problems, and software packages. Labs are modeled after a typical Physics or Chemistry laboratory where the student performs guided "experiments" independent of the present class material. Projects involve the student discovering and conjecturing results related to calculus. Problems are challenging realistic questions that might require modern technology to solve. All are technology dependent, but independent of a specific brand of computer. The software packages will bridge this gap by supplying the appropriate materials for MS- DOS and Macintosh machines.